Data Structures and Algorithms for Maintaining Data Locality

As modern memory architectures grow in complexity, it is becoming
increasingly important to design algorithms with high data locality.
Standard approaches parameterize algorithms by aspects of the memory
hierarchy, such as the size and block size of each memory level.
Unfortunately, this parameterization often leads to complex algorithms
that are tuned to particular architectures. A promising new line of
research is to develop memory-hierarchy-sensitive algorithms that avoid
any memory-specific parameterization. Such platform-independent algorithms
are said to be "cache-oblivious." If a cache-oblivious algorithm works
optimally on a two-level hierarchy, then it works optimally on all levels
of a multilevel memory hierarchy; cache-oblivious algorithms automatically
tune to arbitrary memory architectures.

This research involves maintaining data locality in irregular and dynamic
settings, where the data flow is continually changing and unpredictable.
The investigator will design cache-oblivious solutions for a variety of
fundamental algorithms and data-structures problems. New algorithmic
models of aspects of the memory hierarchy will be proposed and integrated.
The investigator will emphasize solutions that are simple and elegant
enough to implement. Two verification tools under development at Stony
Brook will provide testbeds for the project's empirical component.